The Electron Beam Process in Drinking Water Treatment: Biological, Cryptosporidium and Giardia, Control and Contaminant Destruction

Cooper 97-29965 This is an award to support research on a disinfection process for water by use of ionizing radiation produced by a beam of energized electrons. The research will focus on use of the beam for inactivation of Cryptosporidum sp and Giardia sp. It will consider the potential use of the beam for treatment of raw water prior to its treatment using conventional coagulation, sedimentation and filtration processes. The research will also consider the possibility of using the beam to treat filter backwash water prior to its return to the raw water supply line. Since it is likely that a residual disinfectant will be needed before placement of water into a potable water distribution system, this research will also address the potential the electron beam has for destruction of precursors of disinfection byproducts produced by chemical disinfectants such as chlorine. Since many of the common contaminants of surface and ground water supplies are organic chemicals originating from both point and non-point sources, the research will also examine the potential use of the beam for destruction of organic pesticides, herbicides and organic compounds that adversely affect the taste and odor of water destined for potable consumption. The results of this project are expected to provide information potentially useful in considering electron beam radiation as an approach to disinfection of water contaminated with the target organisms. Co-investigators include Dr. Joan Rose, Professor in the Department of Marine Science at the University of South Florida, Dr. Kevin O'Shea, Associate Professor in the Department of Chemistry at Florida International University and Dr. Prashant V. Kamat, Senior Scientist, Radiation Laboratory, University of Notre Dame. Edward H. Bryan, Ph.D., Program Director Environmental Engineering March 2, 1998